RUI: China International Migration Project

This research will investigate recent, often clandestine, Chinese immigration into the United States. It combines interviews with recent immigrants in New York with a systematic sample of Chinese households from six community sending areas in Fujian province. Besides basic data on socioeconomic status of the households, the interviews will collect information on exposure to networks of migration agents. For long distance immigration such as from Fujian, these networks should be crucial, especially as the migration flows increase. Household data on remittances and community inventories will be used to evaluate the impact of the migration on business development in the sending communities in Fujian.